Teacher Development Program for Underprepared High School Chemistry Teachers

Key to this project is a three-week summer workshop for 24 high school chemistry teachers, selected from northeastern Ohio. In this intensive workshop, they will study chemical structure and bonding, energetic aspects of chemistry, and biochemistry. In addition, they will participate in a course component in science education. Features of the program include lectures, laboratory exercises, instructions in video- taping science demonstrations, and exposure to computer applications. The program will provide an introduction to the "real world" of applied chemistry through laboratory and industrial tours and lectures by industrial scientists. Problem sets, computer software, and videotaped materials will be tested by the teachers in their classrooms during the following academic year, and the results of these piloting activities will be shared in follow-up Saturday workshops. The 24 participants will be selected from those with less than five years of chemistry teaching experience at the secondary level and/or those unprepared for chemistry teaching. Special consideration will be given to applicants from the Cleveland school system, to members of under-represented groups, and to teachers of students from under- represented groups. The teachers will receive stipends of $200 per week and their living expenses at Notre Dame will be covered by the grant. They will be eligible to receive academic credit in the form of continuing education units.